Invitational Seminar for Computer Science, Mathematics, and Science Faculty of Minority Institutions

This seminar series is a continuation of the National Science Foundation and National Bureau of Standards outreach program for technology in science and mathematics for faculty of minority institutions. Two, four-day, seminars will be held (each seminar will consist of two days at NSF and two days at NSB). The meetings will provide an opportunity for NSF of acquaint approximately 60 faculty members from 30-40 minority institutions with relevant NSF programs and NSF in general. It also provides an opportunity for NSF program officers to meet key people at minority institutions who can facilitate the identification of potential reviewers and who can identify minority researchers and encourage their participation in NSF programs. The strengths of the proposal are that (1) evaluations of prior meetings have judged them useful and the evaluation of the recent joint seminar found that the opportunity to learn about NSF programs was judged very important to the faculty who attended, (2) joint sponsorship will significantly reduce the costs for both sponsoring agencies, (3) this form of activity moves beyond passive approaches of individual programs and acts as a catalyst for personnel at both the Foundation and the participating institutions.